Baryon Structures and Hadron Interactions

The fundamental particles and interactions in nature are currently
described by the Standard Model, with the sector of strong
interactions described by Quantum Chromodynamics (QCD). The quark
mass eigenstates of QCD are related to the physical weak eigenstates
of the Standard Model through the Cabibbo-Kobayashi-Maskawa (CKM)
matrix. A requirement of this matrix is that the sum of the squares
of the three elements across each row or each column be unity.
Currently, the sum for the first row falls below unity by 2 to 2-1/2
standard deviations. The possible deficiency opens up the
possibility for new physics, such as additional quark families or
super-symmetry models. One of these matrix elements can be
determined by a measurement of the decay rate of the K meson into a
pion, a positron, and a neutrino, known as Ke3. Experiment E927 at
Brookhaven National Laboratory will use the Crystal Ball
spectrometer to make a new, high-precision measurement of the Ke3
decay rate. This improvement by about a factor of 3 over the
current value, along with new neutron decay experiments, will permit
a critical test of CKM unitarity. Experiment E927 will also provide
data concerning weak interactions in hadrons, and may help with the
interpretation of recent related data on the production of neutron
mesons from nucleons and nuclei.